Conference: 2000 Cold Spring Harbor Laboratory on Germ Cell; October 5-8, 2000; Cold Spring Harbor, NY

0074644
Grodzicker

Germ cells are set aside from other types of cell early in development, and
differentiate into functioning sperm and egg cells. To understand germ cell
differentiation would be a major achievement in biology, and would provide
important insights into infertility, contraception, human congenital
diseases, germ line tumors, as well as the preservation of endangered
species. The molecular basis of germ cell differentiation is beginning to
be understood, due to major intellectual and technical advances. General
mechanisms that unite both vertebrates and invertebrates are beginning to
emerge.

Six topics have been chosen for platform presentations: The early germ
line; regulation of germ cell gene expression; cell division in germ cells;
sperm differentiation; oogenesis and egg polarity; fertilization and germ
cell function. Each will be organized and co-chaired by two experts in the
topic, who will invite half the speakers, and select the other half from
submitted abstracts. Platform presentations from young
scientists will be encouraged. The meeting will facilitate interactions between scientists who
study different model systems, and different aspects of germ cell
differentiation.

This meeting will provide a public forum for discussion of all aspects of
germ cell research, from the primordial germ cell to the functioning
gamete, in diverse model organisms. About 200 - 250
participants from all over the world are expected to attend. There are no competing meetings that
are so wide in scope.